Core Activities of the Geotechnical Board

This award to the National Academy of Sciences is for support of the activities of the Geotechnical Board during the one year period May 1, 1989 to April 30, 1990. The Geotechnical Board exists within the National Research Council and its Commission on Engineering and Technical Systems. Funds are requested from 15 agencies in amounts ranging from $15,000 to $50,000.